The Center for High Resolution Electron Microscopy (CHREM)

The facility for High Resolution Electron Microscopy continues its programs which have two principle aspects: the development of new techniques, methods for data analysis and instrumentation for advanced high resolution electron microscopy on the one hand, and the provision of services, assistance and education for the national electron microscopy community on the other hand. Major recent developments include the installation, evaluation and initial application of two new electron microscopes designed for observation of specimens in ultrahigh vacuum or controlled environments, as part of a large scale effort to integrate the techniques of surface study with those of high resolution microscopy so that the field of surface science may be extended to include studies with atomic resolution. Increasing contributions are being made by facility users to the advancement of many areas of solid state science, including studies of semiconductor defects and interfaces, supported metal and oxide catalysts, chemical reactions in the solid state, the structures of minerals, structures and defects of high temperature superconductors and several aspects of disordered systems. Interactions of the facility with industrial laboratories have been enhanced by the establishment of an Industrial Associates Program. The future will see an expanding role for the high resolution electron microscopy and associated techniques and for the facility in key areas of condensed matter science and technical developments which will enhance the effectiveness and productivity of the advanced instrumentation.